Collaborative Research: Gateway or Gatekeeper: Understanding Why Black Students Choose Engineering Technology or Engineering, and the Implications of this Choice

This project will contribute to the development of a more robust engineering workforce by highlighting the academic pathways to and through college of a group of degreed and trained workers, Engineering Technology (ET) graduates, who are often overlooked in conversations around the stated goals for the Engineering profession. While ET graduates often work alongside engineers and there may be little distinction between their entry-level job descriptions, many encounter barriers to career advancement in the hierarchical engineering field because of their chosen degree path. In addition, the ET bachelor’s degree is often not held in the same regard as the Bachelor of Engineering for admission to graduate programs. This can present limitations and challenges to the ET graduate whose goal is academia, engineering research, or a leadership position in industry. This study will center on the voices, experiences, and knowledge of ET students through focus group interviews and surveys to gain insight into the factors that led them to their chosen major and their experiences as students in ET. The project will also compare the engineering and ET programs at the collaborating institutions and examine whether there are certain engineering majors that are less accessible than others, and whether all STEM learners have equal access to all majors in both engineering and ET.

The overarching goal of this work is to contribute to the identification and removal of barriers in ET education. The long-term goal is that the findings of the research will ultimately be used to inform interventions and policy changes to improve the educational and post-graduate experience for all ET students. The specific research questions of the project are as follows:

1. What role do high school counselors, college counselors/recruiters, and faculty play in students’ choice of ET versus engineering?
2. What are the academic and structural barriers that might restrict students’ admittance to engineering?
3. What are the barriers and affordances that prevent or enable students to transfer from ET to engineering (and vice versa)?
4. How do ET students perceive their future career opportunities?
5. To what extent do ET students identify with the engineering and/or ET domain, and how is this related to contextual salience of stereotype threat and belongingness to the program?
6. How do students’ perceptions of their experiences in ET and the interpretation of these experiences relate to their self-schemas including their expectations of success, personal and professional identities, and their career goals?

By examining the complexities and suggesting solutions to lessen their impact, opportunities for STEM learners in all areas of the Engineering profession will improve, thereby developing a more robust STEM workforce.